CDI-Type II: Zooniverse - Conquering the Data Flood with a Transformative Partnership between Citizen Scientists and Machines

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

Scientists and researchers from fields as diverse as oceanography and ecology, astronomy and classical studies face a common challenge. As computer power and technology improve, the sizes of data sets available to us increase rapidly. The goal of this project is to develop a new methodology for using citizen science to unlock the knowledge discovery potential of modern, large data sets. For example, in a previous project Galaxy Zoo, citizen scientists have already made major contributions, lending their eyes, their pattern recognition skills and their brains to address research questions that need human input, and in so doing, have become part of the computing process. The current Galaxy Zoo project has recruited more than 200,000 participants who have provided more than 100 million classifications of galaxies from the Sloan Digital Sky Survey. This project builds upon early successes to develop a mode of citizen science participation which involves not only simple "clickwork" tasks, but also involves participants in more advanced modes of scientific thought. As part of the project, a symbiotic relationship with machine learning tools and algorithms will be developed, so that results from citizen scientists provide a rich training set for improving algorithms that in turn inform citizen science modes of participation. The first phase of the project will be to develop a portfolio of pilot projects from astrophysics, planetary science, zoology, and classical studies. The second phase of the project will be to develop a framework - called the Zooniverse - to facilitate citizen scientists. In particular, research and machine-learning communities will be engaged to identify suitable projects and data sets to integrate into Zooniverse.

The ultimate goal with the Zooniverse is to create a sustainable future for large-scale, internet-based citizen science as part of every researcher’s toolkit, exemplifying a new paradigm in computational thinking, tapping the mental resources of a community of lay people in an innovative and complex manner that promises a profound impact on our ability to generate new knowledge. The project will engage thousands of citizens in authentic science tasks leading to a better public understanding of science and also, by the engagement of students, leading to interest in scientific careers.